Second-order Cone Programming : Algorithms and Applications

Large Second-order Cone Programming: Algorithms and
Applications.

PI. Donald Goldfarb and Garud Iyengar.

Abstract.

Second-order cone programs (SOCPs) are convex optimization
problems in which a linear function is optimized over the
intersection of an affine linear manifold with the Cartesian
product of second-order (Lorentz) cones. Linear programs (LPs),
convex quadratic programs (QPs), and quadratically constrained
convex quadratic programs can all be formulated as SOCPs, as
can many other problems that do not fall into these three problem
classes. On the other hand, since a second-order cone constraint
is equivalent to a linear matrix inequality, semidefinite
programs (SDPs) include SOCPs as a special case. Computationally
speaking, an SOCP falls between an LP or a QP and an SDP. Interior
point methods solve all of these problems in polynomial time.
Although, the computational effort required to solve an SOCP is
greater than that required to solve an LP or a QP, it is
substantially less than that required to solve an SDP of similar
size and structure. However, in many ways, an SOCP is closer to
an SDP than an LP or QP since its feasible set is non-polyhedral.
The proposed research focuses on several aspects of SOCPs,
including the development of numerically stable algorithms for
SOCPs that take advantage of sparsity in the data, the study of
SOCP-based approximation algorithms for hard combinatorial optimization
problems, the study of computational aspects of cut generation methods
for mixed 0-1 SOCPs and the applications of SOCPs in robust financial
optimization.

SOCPs are excellent models for applications that arise in a broad range
of fields from engineering, control, and finance, to robust and
combinatorial optimization. The wide applicability of SOCPs and the
need for efficient, numerically stable algorithms to solve them makes
their study worthwhile.